Planning Grant to Establish an Industry/University Cooperative Research Center for Simulation & Design of Mechanical Systems

While the current supremacy of U.S. technology in computers, computer graphics and computational machines is clear, these technologies are not being adequately exploited in support of mechanical systems and designs. Major developments have occurred in these areas but vendors of computer aided design and engineering are just beginning to include support for some specialized analysis of mechanical system simulation and design. The potential that exists for large scale interdisciplinary simulation and design optimization support to mechanical system design is virtually untapped. Research bringing the many disciplines together to focus and develop this technology could benefit industry significantly. An Industry/University Cooperative Research Center may be an approach to accomplish this objective. This planning grant is studying the feasibility and viability of an Industry/University Cooperative Research Center on Simulation and Design Optimization of Mechanical Systems at the University of Iowa. The project is studying alternative organizations, operations, and policies for an Industry/University Cooperative Research Center on Simulation and Design Optimization of Mechanical Systems. The study is also determining industrial research interests and those interest that a university could address. The principal Investigator and his colleagues are nationally recognized experts that have the industrial contacts necessary to conduct this study. The project has been coordinated with Dr. Alan de Pennington, DMCE, and Dr. Elbert Marsh, MSME, in the Engineering Directorate. The Program Manager recommends a grant of $50,000 be awarded to the University of Iowa for one (1) year for this project. The U.S. Army Tank Automotive Technology Directorate is providing half of the funds for this project.